An Incremental Tripartite Model of Consultation Dialogues and Negotiation Subdialogues

This project is concerned with the modeling of cooperative expert consultation dialogues within a plan-based framework, with emphasis on the recognition of problem solving and communicative intentions and the handling of negotiation subdialogues. The research will develop a rich tripartite dialogue model that differentiates among domain, problem solving, and communicative intentions yet captures the relationships among them.; beliefs and intentions will be explicitly ascribed to the participants and each kind of intention will be recognized incrementally as the dialogue progresses.